Resonant Tunnelling into Quantized Exciton-Polariton State in A OD Microcavity

Proposal Number: ECS-9800068 Principal Investigator: Hui Cao Title: Resonant tunneling into quantized exciton-polariton state in a 0D microcavity Abstract The proposed research is aimed at realizing a new type of light emitter which promises low threshold currents with high efficiencies. The device utilizes a high-Q zero-dimensional (0D) microcavity and the hole-assisted electron resonant tunneling process to create the exciton-polariton states in the 0D microcavity. If successful, it may have great impact in creating a new class of low threshold light emitters that will enable future nano structures for optoelectronic devices and integrated circuits.